U.S.-Taiwan Symposium: Innovations in Undergraduate Education in Chemistry/December 15-18, 1996/University of California-San Diego

9600492 Eliel This is a 12 month award proposed by Dr. Ernest Eliel, American Chemical Society and Professor Tai-Shan Fang, National Taiwan Normal University. This proposal requests funds to convene a U.S.-Taiwan symposium on innovations in undergraduate education in chemistry. This symposium will be modeled after the U.S. Gordon Conferences; eight U.S. educators and seven Taiwan educators will present lectures. Twenty college chemistry educators and students from the U.S. will be invited to attend. Innovation in undergraduate education in chemistry is an important topic in the development of human resources in science and international research infrastructures. This topic is particularly opportune, since chemistry education in Taiwan has been undergoing a major change. The Ministry of Education has spent a billion dollars remodeling the chemistry laboratories at 20 universities during the last ten years. The experience gained from this renovation will be useful to share with chemistry educators in the U.S. The meeting will be held at the University of California at San Diego on December 15-18, 1996 and is jointly supported by the Taiwan National Science Council and the NSF.